Aqueous Chemistry, Thermodynamic Studies, and Catalytic Reactivity of Nineteen-Electron Organometallic Complexes

With support from the Inorganic, Bioinorganic and Organometallic Chemistry Program Dr. David R. Tyler will investigate the fundamental chemistry of organometallic compounds which have nineteen electrons in the outer shell of the metal. These highly reactive species are generated in light-induced reactions of stable organometallic compounds. The results of the study are expected to provide a better understanding of the photochemistry of organometallic compounds and may enable the use of 19-electron species as homogeneous catalysts. The study will be divided into three subprojects: (1) The generation and reactivity of water-soluble 19-electron complexes will be investigated. Of particular interest are electron transfer reactions of the water-soluble complexes and the synthesis of an "electron reservoir" for two-electron transfers. (2) The factors that influence the stability of 19-electron complexes will be elucidated by measurements of the thermodynamics of their formation. (3) The use of 19-electron complexes in homogeneous catalysis will be investigated through experiments designed to probe reactivity toward dihydrogen and toward CO insertion. The cyclotrimerization of acetylene will be studied to test the hypothesis that 19-electron complexes can couple substrates on different metal centers.